The Ephemeroptera of North America

DEB-9901577
McCafferty

This project is designed document the diversity of North American Ephemeroptera by collecting new specimens of mayflies in poorly studied regions, creating new species keys, and expanding the existing database on ephemeropterans. Cross-platform accessible software will be used for the datases, and plotting ranges will be facilitated with additonal software. Input data for each sample will include taxonomic and accession information; new data will be captured from existing collections; species keys to certain problematic groups will be constructed; and any other diagnostic needs will be incorporated. The databases will be web-accessible and form the basis for documentation of Ephemeroptera that will serve to facilitate their use as indicators of the health of entire benthic communities.